Coastal Ocean Predictions Systems Workshop

This proposal is to hold a workshop on coastal ocean predictive modeling. Several U.S. agencies have interests in the coastal circulation, and how models with predictive capability can be developed. The workshop will provide an opportunity for modelers and users to exchange information leading to a strategy for such model development.